Acoustic Monitoring of Beams

This project deals with the development of systems which use acoustic signals to monitor the performance of equipment. There is a wide variety of potential applications for such acoustic monitoring systems. As sensors and computer hardware become smaller and less expensive, all manner of machines and structures could be provided with "nerve systems" to assess their health. This project involves three phases, comprising 1) modeling of acoustic systems, 2) data acquisition and signal processing, and 3) system identification. The system envisioned ultimately will consist of an acoustic excitation, a transmission path, one or more receivers, and hardware for signal processing and computation. The monitoring of beams for cracks will be considered as a specific example.